REU Site: Summer of Applied Geophysical Experience (SAGE)

SAGE (Summer of Applied Geophysical Experience) is a university-level research experience focused on modern geophysical exploration. The emphasis is on hands-on, research- scale, advanced learning. The SAGE field area in the Rio Grande rift near Santa Fe, New Mexico provides a stimulating tectonic research environment as well as an opportunity to study occurrences of groundwater and hydrocarbons. SAGE students participate in every phase of the field research from the collection and processing of data to its interpretation culminating with both an oral and written report. NSF supported REU students first complete the three-week field segment of SAGE. They then return to their home campuses where research continues on data that they have collected. SAGE is sponsored by the Los Alamos National Laboratory (LANL) Branch of the Institute of Geophysics and Planetary Physics of the University of California and five universities who furnish faculty and over $2,000,000 worth of geophysical equipment.